Collaborative Research: Community Facility Support: Facilitating Access and Innovation through a Collaborative Organization for Rock Deformation (CORD)

This award provides support to continue a community facility for rock deformation by providing partial funding for two full-time laboratory technician positions, both of which will jointly support the rock deformation laboratories at both Brown University and Massachusetts Institute of Technology as part of CORD: Collaborative Organization for Rock Deformation. Educational and research interactions through CORD will benefit faculty, students and staff visiting this facility. Experimental rock deformation studies provide fundamental insights into the natural phenomena which shape our Earth and other planets, including earthquake generation and viscous flow of rocks and ices. Increasing knowledge of rock properties also plays a key role in meeting societal needs such as exploiting natural resources and enabling CO2 sequestration to mitigate climate change. Owing to technical complexity, only a handful of laboratories exist in the US with the capability to perform such work. Beyond dedicated experimentalists running the equipment, there is a broad user community with interest in performing experiments but without the resources and experience to start their own laboratories. The key challenge in increasing access to existing equipment is the training of users, and maintenance and safe operation of complex machinery. The presence of dedicated technical personnel is an effective way to facilitate access to this sophisticated equipment for a much broader section of the Earth science community and provide a robust, effective, and welcoming laboratory research environment. Visiting scientists will be able to become acquainted with faculty, staff, and students at MIT and Brown. Besides improving outreach to other universities and organizations, the CORD project will promote coordination between the two partner laboratories. Regular meetings, lectures and workshops that can be attended by all those interested available by web-link will be held. Both groups will benefit from insights and best practices developed at both institutions. Lastly, the presence of dedicated technical personnel will facilitate the development of new experimental capabilities, pushing the boundaries of experimental geophysics.

The primary goal of this proposal is to encourage and facilitate participation in experimental rock deformation studies by a broader spectrum of scientists within the Earth science community. The technician support increases the availability and efficiency of use of the equipment in the PI’s laboratories to colleagues from other organizations, who are interested in rock deformation, but currently lack access to laboratory these facilities and expertise. The secondary goal is to develop new experimental capabilities. Each laboratory technician has become an expert operator of equipment, and in close collaboration with the PI’s, can train new users. The primary responsibility of the technicians is to maintain the equipment in dependable working order and enable its safe and efficient operation with a broad user base. Maintenance is a priority for maximizing access to visitors working on fixed schedules. Routine tasks include training of new users in collaboration with PIs, and replacement of seals and gaskets, calibration of load cells, displacement transducers etc. The technicians will organize and ensure consistent archiving of experimental data. Other duties include maintaining inventories of consumables and lists of suppliers. Assisting in the design and implementation of new innovative capabilities of the equipment is also an important component of the responsibilities. Scientific and technical advances go hand-in-hand. Sharing technical support provides inter-laboratory calibrations, innovation, standardization of techniques, and development of a consistent format for data management.